SBIR Phase II: Autonomous active safety systems for verifiably safe operation of ground vehicles

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project will result from addressing the gap between the ride hail and vehicle rental markets via the creation of a new, more accessible “car hailing” mode of transportation. Based on technical advancements in vehicle safety and fleet logistics, car hailing technology offers the potential for direct and desirable impactful outcomes, that can improve quality of life and decrease cost of living; as a result of more efficient vehicle fleet utilization; centralized, managed parking, which could free land for pedestrians, housing, and businesses precisely where it is needed most; and significant job creation due to the need for remote human vehicle operators. These benefits directly translate into increased economic competitiveness of the United States.

This Small Business Innovation Research (SBIR) Phase II project will help enable scalable commercial deployment of vehicle teleoperation technology and services by further developing and improving previous advances in robotics control, perception, and safety engineering. There are two primary objectives for the Phase II research. The first is to develop new techniques and methodologies in safety engineering that will enable the systematic testing and safety assurances necessary for large-scale public road deployments of vehicle teleoperation technology. The second is to revise and improve the novel control and perception technologies developed during the Phase I project to satisfy new requirements derived from the company’s safety engineering advances. The results of the Phase II research will include robotics control and perception capabilities that significantly advance the state of the art, as well as a new set of safety engineering practices and methodologies that could serve as a foundation for the emerging industry of vehicle teleoperation and autonomous vehicle safety.